Travel Support for the Conference on Architectural Support for Programming Languages and Operating Systems

This grant provides NSF support to broaden participation in the Sixteenth International Conference on Architectural Support for Programming Languages and Operating Systems (ASPLOS 2012), to be held in London, UK in March 2012. ASPLOS is the premiere forum for research involving the interaction of computer architecture, compilers, and operating systems. It brings together leading researchers from these diverse communities to one conference offering opportunities to interact across traditional disciplinary boundaries. This proposal aims to increase the impact of this conference by enabling participation by additional students and faculty for whom travel support would otherwise preclude their attendance. Priority for these funds will be given to defray the travel expenses of under-represented groups.